Oceanographic Technical Services 2003 - 2005, R/V Cape Henlopen

0313742
Deering
This 3-year award to University of Delaware provides support for technical services during NSF-funded programs on R/V Cape Henlopen, a 120' general purpose research vessel operated as part of the University-National Oceanographic Laboratory System research fleet. University of Delaware will provide one or two shipboard technicians on each cruise of R/V Cape Henlopen to support seagoing research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation. In addition to these basic support functions, the technical support group will maintain and provide multibeam sonar and undulating vehicle systems to qualified users requiring those services in support of their funded research programs on R/V Cape Henlopen or other UNOLS vessels, as schedules allow.
***